Community Facility Support: Travel support for student participation at the 2020 Electron Backscatter Diffraction Topical Conference; Ann Arbor, MI - June 2020

This award will support early career scientists to attend a topical conference on electron backscatter diffraction. The conference will contribute significantly to training of students and early career investigators and provide a venue for multidisciplinary discussions and exchange of ideas and concepts, from the fundamental (academic) to the applied aspects (industry). The tutorial that opens this topical conference will provide not only basic training that will be particularly useful to students and early career investigators, but also access to a number of expert users from a variety of fields.

This topical conference series has become the de facto meeting in North America for training, development and application of this core microanalytical technique. This conference will provide a venue for ideas to be shared between the primary disciplines utilizing the technique: geoscience, materials science, data science, and engineering. The exchange of cutting-edge knowledge from and between these communities will facilitate dissemination of knowledge and further research developments.